CISE Research Instrumentation: A Distributed Biomedical Computing Laboratory

9617349 Bic, Lubomir, F. Michael Dillencourt University of California, Irvine CISE Research Instrumentation: A Distributed Biomedical Computing Laboratory Many important problem areas of biomedical computing have the ability to generate large volumes of relatively coarse-grain computations and thus can benefit greatly from a LAN-based network of workstations. This project will provide such an infrastructure, based on a cluster of Sun workstations, which will be shared by the following four projects: -Knowledge Discovery in Clinical Databases-Brain Network Models-Toxicology simulations-Distributed Protein Structure Prediction. The goal of this project is to discover new knowledge in clinical databases that will be useful for diagnosis and treatment. It uses novel machine learning methods that are particularly suited to medical databases. The second project attempts to understand the functions of specific brain regions. It will develop parallel versions of neural-net-based algorithms to solve difficult signal-processing tasks. The third project develops a distributed simulation environment that supports the construction and interactive use of simulation models for predicting concentrations of chemicals (drugs or toxins) in the human body to assess health risks. The last project will parallelize a novel protein structure prediction algorithm developed by our research group, and, subsequently, will validate a novel Bayes-optimal Prediction theory.